SGER: Development of a Physically Meaningful Global Model of the Critical Frequency of the F2 Layer of the Ionosphere

This is a Small Grant for Exploratory Research (SGER) to develop an innovative model to predict the maximum electron density in the F region ionosphere. The model is unique in that it uses a set of planetary scale geomagnetic indices as input. The dependence of F region ionization on these indices provides important insight into the physical mechanisms that determine ionospheric electron density. In particular, preliminary results show that the intensity of the ring current in the magnetosphere is crucial in accurately specifying the global electron density. This is evidence for a direct coupling mechanism between the solar wind and the ionosphere. This SGER will allow further refinement and development of the model including validation and verification of the results by comparison with global electron density measurements. In the course of the study, the dependence of ionospheric conditions on various driving forces will be identified and quantified.